Conference Support: Indigenous Worldviews in Informal Science Education (I-WISE): Integration, Synthesis, and Opportunity

The conference, Indigenous Worldviews in Informal Science Education, is designed to advance research on the integration of Native and Western science in relation to informal science learning. The goals of the conference are to integrate and synthesize research and theory, formulate a research agenda, and share the results with the STEM education community. The conference is organized around six strands: Collaboration, Policy, Holistic Education, Next Generation Youth, and Evaluation.

A six-week preconference online discussion of conference issues leads into the two-day conference, held at Imiloa Astronomy Center in Hilo, Hawaii. The meeting brings together sixty participants including educators, research scientists, learning researchers, policymakers, and Native youth. The conference includes keynotes, workshops and synthesis discussion groups, which will be synthesized and presented at a policy outcome meeting held in Washington, DC that follows the conference. Conference results will be further disseminated at relevant conferences, in publications, and through online discussions. A full evaluation process will inform the detailed planning of the conference and will evaluate the effectiveness of the conference, based on responses from conference participants.